Dissertation Research: Gender and Agrarian Change in Columbia

This project supports a graduate student in cultural anthropology who is studying the changes in women's roles and status in an agrarian region of Colombia. Using structured community surveys, intensive life history interviews, and participant observation in two communities, the student will investigate the hypothesis that women are increasing in control of valued resources, which will affect their roles and status within the household. This research is important because economic development often leads to a decrease in the status of women, as men control more resources which yield money incomes. By studying a regional economy where women may be increasing their economic status, the case will contribute to our knowledge of how women's status may be maintained and improved while maintaining economic development.